The University of Mississippi Connections Project: Internet 2

This award is made under the high performance connections portion of ANIR's "Connections to the Internet" announcement, NSF 98-102. It provides partial support for two years for a DS3 connection. Applications include drug design, high-energy physics, hydroscience simulation, cognitive psychology, and image processing. Collaborating institutions include but are not limited to: the National Center for the Development of Natural Products (NCDNP), CERN, Fermilab, Stanford University, Oak Ridge National Laboratory, NASA Stennis Spaceflight Center, the State Department of Information Technology Services, and the University of Utah.